Collaborative Research: FRG: Class numbers, Hyperbolic Manifolds and Dynamics

DMS-0139816
Ted Chinburg

The problem of constructing infinitely many number fields of class
number one descends from Gauss's work on quadratic forms, and remains
one of the major unsolved problems in algebraic number theory. This
has been the inspiration for many new ideas and techniques in
algebraic number theory and arithmetic geometry. The proposers plan a
sustained attack on this problem using geometric methods based upon
recent advances in the theory of hyperbolic manifolds coupled with a
natural broadening of the classical Bianchi- Hurwitz theorem.
Possible important mathematical by-products include new techniques
for estimating class numbers and an improvement of the
understanding of properties of the trace fields of hyperbolic
manifolds.

Further consequences of this work of a somewhat broader impact also
seem possible. The most obviously relevant applications seem to
come from the direction of cryptography. The difficulty of factoring
numbers into primes is the basis for the RSA cryptosystem. The fastest
known algorithm for factoring large whole numbers into primes is the
so-called number field sieve, and the techniques from algebraic number
theory involved in this sieve were developed in part from work on class
numbers. This project could impact such algorithms and progress on
factoring problems would have significant implications for cryptography.
This award is jointly funded by the programs in Topology and Algebra,
Number Theory, & Combinatorics.